Multinuclear Gradient Inverse Probe, Amplifier, and Overnight Low Temperature Dewar for High-Field NMR Spectroscopy in the Chemistry Department at Washington and Lee University

With this award from the Major Research Instrumentation (MRI) Program, the Department of Chemistry at Washington and Lee University will acquire a multinuclear gradient inverse probe, amplifier, and low temperature Dewar for their 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) macrocyclic polyamide complexes that are significant in industrially important environmentally friendly catalytic oxidations; and b) the mechanism of ruthenium-carbene based ring opening metathesis polymerization, zirconium metallocene-catalyzed polymerizations, and polymer backbone dynamics.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research.